Acquisition of a Modern NMR System

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of Vermont acquire an upgrade of a 400 MHz NMR spectrometer which will be used in research investigations in the following areas of chemistry: (1) the total synthesis of natural products, (2) novel inorganic rings and polymers, (3) studies of chromatographic supports at the molecular level, (4) biologically active platinum compounds, (5) fundamental structural and conformational studies related to electron-transfer processes, (6) molecular sterodynamics, and (7) heterocyclic chemistry. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research.